Lenses on Learning: Understanding Mathematics Instruction at the Secondary Level

This project investigates the Leadership Content Knowledge (knowledge of mathematics, how it is learned, how it is taught) of secondary school administrators. We will explore the nature of secondary administrators. LCK, how a "Lenses on Learning" course affects this LCK and how materials design principles developed for K-8 Lenses function at the secondary level.

The project will investigate these questions while developing, piloting, and field-testing a six-session "Lenses on Learning" module in which administrators will do and discuss mathematics; explore how students learn mathematics and how it is best taught and link these ideas to their administrative practice.
Collaborators will be three pilot-test sites in the Boston area, six nationally-distributed field-test sites, internal and external evaluators, advisory board and publisher (Pearson Learning).